Mathematical Sciences: Automorphic L-Functions and the Theory of Endoscopy

This grant supports work by Professor Shahidi in the theory of automorphic forms and representation theory. The investigator will study the non-discrete tempered spetrum of classical groups over local fields by means of the theory of endoscopy as developed by Kottwitz, Langlands and Shelstad. This is research in the field of number theory. Number theory starts with the whole numbers and questions such as the divisibility of one whole number by another. It is among the oldest fields of mathematics and it was originally pursued for purely aesthetic reasons. However, within the last half century, it has become an essential tool in developing new algorithms for computer science and new error correcting codes for electronics.